Numerical Solution of Operation Equations

The objective of this three-year U.S.-Yugoslav cooperative research project in mathematics between Dragoslav Herceg of the University of Novi Sad and Eugene Allgower of Colorado State University is to investigate numerical solutions of nonlinear algebraic and differential equations. The complementary strengths and expertise of the U.S. and Yugoslav investigators in this field could lead to some innovative work. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is supported through a joint fund consisting of matching contributions from the U.S. and Yugoslav governments. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. The grants are composed principally of Yugoslav dinars and made to the principal Yugoslav institute. Grants include travel for U.S. scientists to Yugoslavia and a modest dollar allowance for Yugoslav scientists' living expenses in the U.S.